Nonlinear Optical Properties of Small Grain Composites (Joint Research Effort)

A three year theoretical program to study nonlinear optical properites of nobel metal grains (gold, silver and copper) and semiconductor grains (Cd SexS1-x) embedded in glasses or suspended in colloidal solutions is proposed. The research will also focus on size dispersion, shape variations and polymeric coatings on the particles to enhance the optical nonlinearities. The project involves the theoretical formulation of the dynamic properties of quantum confined carriers in these grains and the calculation of the dielectric function. A generalized effective medium theory will be developed to obtain the overall dielectric response of the composite material which includes the metal or semiconductor grains and the dielectric host material. The generalized effective medium theory will be tested by numerical simulation of the composite medium. The resultant dielectric functions will be used to study the spatial propagation of electromagnetic waves in the medium. Our description will include transverse modes and forward- and backward-wave propagation to obtain realistic analysis of the materials. The investigators will study absorption and reflection of the electromagnetic waves, as well as, multiwave mixing. Experimental data on these materials will be analyzed in terms of these dielectric functions. The phenomena of optical bistability and optical phase conjugation will also be investigated in the composite materials. This project is expected to lead to a realistic assessment of the application of these materials for nonlinear optical devices.